Research Experiences for Undergraduates in Chemistry at the University of Arkansas

This award by the Chemistry Division supports Dr. Donald R. Bobbitt and other members of the Chemistry Department at the University of Arkansas in a continuation of a Research Experiences for Undergraduates (REU) site in chemistry. For the period 2000-2002, 30 undergraduate students will spend ten weeks each conducting summer research under the supervision of Chemistry faculty. The activities of the participants are planned to promote student independence and to develop professional skills and judgement. Each participant will be given the opportunity to present her/his research at a departmental meeting. Participants will also visit industrial and national research laboratories and attend a meeting of a chemistry or biochemistry professional organization. The participants will be given hands-on experience with state of the art instrumental techniques, obtain a realistic experience of modern chemical research and learn what is expected of students in post graduate education in chemistry.